Giant Magnetoresistance of the Two Dimensional Electron Gas

9522915 Zhang This project is part of the Grant Opportunities for Academic Liaison with Industry (GOALI) initiative at NSF. The project is an industry-university collaboration between Stanford University and IBM Almaden research center, especially Dr. Barbara Jones. The investigators are using both analytic calculations and extensive numerical simulations to understand giant magnetoresistence of the two- dimensional electron gas. The project also includes interaction with the experimental colleagues at both IBM (such as Dr. Stuart Parkin) and Stanford (such as Prof. Charlie Marcus), and interaction with the IBM development and manufacturing divisions in San Jose to understand long term issues and share developments. The project represents a synergy between research in magnetism, semiconductors, and mesoscopic physics. Successful completion could eventually benefit the computer industry by integrating magnetic recording with the semiconductor devises. It will also educate and train a new generation of young physicists with both the capability of pure research and the experience of industrial development. %%% This project is part of the Grant Opportunities for Academic Liaison with Industry (GOALI) initiative at NSF. The project is an industry-university collaboration between Stanford University and IBM Almaden research center, especially Dr. Barbara Jones. The investigators are using both analytic calculations and extensive numerical simulations to understand dramatic changes in semiconducting interfaces due to the application of an external magnetic field. The project also includes interaction with the experimental colleagues at both IBM (such as Dr. Stuart Parkin) and Stanford (such as Prof. Charlie Marcus), and interaction with the IBM development and manufacturing divisions in San Jose to understand long term issues and share developments. The project represents a synergy between research in magnetism, semiconductors, and mesoscopic physics. Su ccessful completion could eventually benefit the computer industry by integrating magnetic recording with the semiconductor devises. It will also educate and train a new generation of young physicists with both the capability of pure research and the experience of industrial development. ***